Enhancing Parallel Processing Laboratory for Multiple Programming Paradigms

This project is enhancing the school's Parallel Processing Laboratory by supporting students' laboratory activities for undergraduate courses related to parallel processing. The laboratory supports parallel processing on different parallel architectures and in different parallel programming paradigms. The laboratory is equipped with a multiprocessor that provides efficient support to symmetric multithreaded parallel processing, a new technology in developing massively parallel processors. In addition to the existing multitransputer system for practicing message-passing programming, this machine enables students to practice shared-variable programming as well. The laboratory is also suitable for graduate students to conduct independent study, graduate projects, and research. The dissemination plan features a workshop attended by the faculty of all interested colleges and universities.